Information Technology Education for the 21st Century Workforce

Westark College fosters the development of work relevant curricula and instructional materials in information technology (IT) that are competency based and integrate general education throughout. The curricula in essential IT clusters, based on various standards documents, consist of building blocks that provide graduates with meaningful skills tied to industry established competencies, including third-party certificates at credible exit points. The instructional delivery system supports both traditional on campus students and place bound students and employees in the workplace. The curricula of the Center articulate with existing high school and tech prep programs and also with four-year programs to shorten the time to employment. The Center provides faculty development opportunities.